CC* Compute: Accelerating Computational Research for Engineering and Science (ACRES) at Clarkson University, A Campus Cluster Proposal

Clarkson University is building a computational cluster (ACRES: Accelerating Computation Research for Engineering and Science) to support data and computationally intensive projects aligned with Clarkson's four interdisciplinary research themes: Data Analytics, Healthy World Solutions, Advanced Materials Development, and Next Generation Healthcare. ACRES facilitates the conduct of high-impact, collaborative research that requires access to high-performance computing (HPC) resources, enables research currently not practical/feasible, and also supports student-learning opportunities through credit-bearing courses, undergraduate research, and an existing NSF REU site focusing on HPC. As a campus resource, ACRES is made available to any faculty member or student at the University according to queueing policies implemented to ensure fair-access. And, ACRES supports Clarkson's increased focus on computational research and a cluster hire of computationally active faculty.

The ACRES compute cluster replaces an existing, five-year-old high-performance compute cluster whose computational capacity provided 1.05M core-h/yr. Research need for computational capacity has grown to an identified total of 8.5M core-h/yr. ACRES is sized to meet current demands and modest near-term growth with unused computational capacity being shared via the Open Science Grid (OSG) to benefit the broader scientific community. This new computational resource provides 9.8M core-h/year through 1120 cores, high-speed Infiniband interconnect, four NVIDIA Tesla V100 GPUs, and 40 TB of scratch storage.